GEM: Magnetosheath Model Validation

The investigators will study the large-scale structure of the magnetosheath using magnetohydrodynamic (MHD) models and data from the ISTP satellites. Areas of study include the occurrence of the magnetospheric 'sash' predicted by MHD simulations, the depletion layer in the magnetopause, and disturbances produced by shocks in the magnetosheath. Processes occurring at the magnetopause generate characteristic signatures that can be observed remotely from positions within the magnetosheath considerably removed from the magnetopause. By identifying these magnetosheath signatures, the investigators will gain useful information concerning the occurrence patterns of magnetopause phenomena. The award will support collaborative efforts with a professor at Istanbul Technical University. The research results will support the goals of the National Space Weather Program and the Geospace Environment Modeling Program.